Spectral and Spectral Element Methods

This project is the continuation of Boyd and Schultz's ongoing development and application of spectral methods. This effort has produced one book and thirty-three papers over the past two years, ranging form theoretical analyses of asymptotic Chebyshev coefficients to practical applications to geophysical and engineering flows. In the proposed work, we will continue to mix numerically- oriented with application-oriented studies. Spectral domain decomposition and special handling of singularities will be major themes. We will apply multi- element Legendre spectral methods to two problems: lubrication in an elliptical journal bering, and a tree-dimensional ocean general circulation model. In these engineering studies, we will compare explicit and implicit time- marching schemes, multigrid with various smoothers (notably GMRES), and different strategies for coping with corner singularities and fronts. In addition, we will perform theoretical investigations on several topics: sum-accelerated pseudospectral methods and their relationship to finite differences, comparison of pseudospectral residuals and errors, reduced basis and Delves-Freeman iterations for solving strongly nonlinear boundary value problems, and spectral methods for fronts and shocks.